Convexity and Applications

Abstract

Award: DMS-0072241
Principal Investigator: Elizabeth Werner

The PI's research deals with questions in affine geometry and
geometric probability of convex bodies as well as with
applications. A tool of considerable importance in the area of
isoperimetric inequalities is the affine surface area from affine
differential geometry whose classical definition goes back to
Blaschke and involves the curvature function of a smooth convex
body. An important problem in convex geometry was to extend the
notion of affine surface area to all convex bodies. The solution
of this problem has only been completed within the last
decade. At present, many extensions of the affine surface area
exist, several of them discovered by the PI. The new techniques
and ideas developed in the process of these extensions should be
beneficial for other problems, and the PI proposes to apply these
techniques to problems of approximation of convex bodies by
polytopes. These approximation problems have been studied
extensively and find application in many areas of mathematics and
computer science. In one paper, for instance, the PI and her
collaborator proved the surprising result that random
approximation by polytopes (choosing the vertices of the
approximating polytope randomly on the boundary of the body) is
as good as best approximation. The Gaussian correlation
conjecture in probability and statistics asserts that
origin-symmetric convex sets are positively correlated under the
standard Gaussian measure. In spite of several partial results
obtained by many researchers within the last years, including the
PI, the conjecture remains undecided. Optimal estimates for the
tail of the Gaussian distribution obtained in this context by the
PI and her collaborators are also relevant for problems in
mathematical physics (see e.g.Differential Equations and
Mathematical Physics, International Press 2000, p.43-51).

The PI wants to get an understanding of the structure of convex
sets. To do so she uses techniques from different areas of
mathematics: analysis, differential geometry, convexity
theory. One wants to understand the structure of such sets as
they appear naturally not only in other branches of mathematics
and mathematical physics, but also in applied areas, like
tomography and image analysis, and computer sciences. The PI and
her collaborators plan to continue working on problems where
convexity and other areas of more applied mathematics
interact. Currently she is involved in a project related to
quantum computing which uses -among other things- tools from
convexity theory.